Winter Workshop on Longitudinal Data Analysis

Longitudinal data are the result of taking repeated measurements on
experimental units over time. Because scientific interest often lies in
how a response changes over time, these data arise in both observational
and experimental studies in a wide variety of fields. Creative
solutions to difficult theoretical issues in longitudinal data analysis
often rely on computationally intensive methods. A workshop on
longitudinal methods appeals to a wide spectrum of researchers with
diverse statistical interests ranging from clinical trials to social
behavior to environmental assessment. The challenge of drawing
inferences based on diverse datasets attracts those interested in
theoretical and methodological statistics. Finally, the excitement of
accepting the challenge of analyzing unorthodox data where existing
statistical methodology is not satisfactory will undoubtedly fascinate
researchers concerned with applications of statistics. This workshop
will provide a forum for the positive interaction between theoretical
developments and advances in practical applications of longitudinal
methods.

The specific objectives of the workshop on longitudinal data analysis,
and consequently its potential broader impacts, are to generate interest
in this topic among researchers nationwide (particularly young
researchers) and among faculty and graduate students at the University
of Florida and neighboring universities; to encourage future
collaborations among researchers; and to promote advances in both the
theory and application of longitudinal data.